Evidence and the Higher Classification of Snakes

Snakes are one of the largest historical groups of tetrapods (approximately 2500 currently recognized species), and they have figured prominently in many ecological and evolutionary theories. Snakes are especially well known for loss of anatomical structure during evolution (e.g., limbs and associated girdles and visual system) and a wide variety of correlated behavioral and morphological specializations (e.g., prey capture and locomotion, especially below the earth's surface). Still, our understanding of snake diversity has been significantly retarded relative to all other major groups of tetrapods because we lack a historical higher classification of serpents. Such a classification is important because all speculations concerning snake ecology and evolution must be logically consistent with the framework provided by the classification. The present study focuses on discovering the earliest lines of snake evolution and providing a consistent nomenclature for their major pathways of evolution. The second goal of this study is to better understand the nature of the evidence necessary and sufficient to infer species history, so called phylogeny. Specific theoretical and methodological considerations concern the importance of including fossils in studies of phylogenetic inference, how one discerns the historical independence of the evidence used to confirm a hypothesized lineage or group of lineages, and whether consensus patterns among taxa (predicted historical groups) or characters (shared novelties) are most important. While examined empirically in the context of snake phylogeny, findings in this part of the study are expected to be relevant to attempts to infer all parts of evolutionary history.